Symbolic Computation and Hopf Algebras

ABSTRACT, NICHOLS 97-05132 Professor Nichols plans to continue to study fundamental questions about Hopf algebras. He will develop and bring to bear techniques of symbolic computation to attack some of these questions. Several of the specific questions about Hopf algebras that Professor Nichols plans to investigate are related by their connection with Yetter-Drinfel'd modules. With the goal of proving Kaplansky's conjecture that the degree of an absolutely irreducible representation of a semisimple Hopf algebra divides the dimension of the Hopf algebra, Professor Nichols, in joint work with Bettina Richmond, has been studying the Grothendieck algebra of a Hopf algebra. Information about how certain Yetter-Drinfel'd modules multiply should help resolve a conjecture which is a key part of that program. A quite different investigation involves computations of bialgebras which are completely determined by Yetter-Drinfel'd modules of finite groups. Even when the groups are small, these can be extremely complicated. The algebra/coalgebra interaction in Yetter-Drinfel'd modules is considerably easier to understand than is the corresponding interaction in the Hopf algebra itself, yet it is rich enough to shed a great deal of light on the Hopf algebra structure. Its elucidation in this situation should be quite instructive. Hopf algebras and symbolic computation are both areas of growing interest, areas which cross fields in mathematics, and areas which are very important outside mathematics as well. Hopf algebras are useful in the type of knot theory that is of interest to molecular chemists. Certain types of Hopf algebras are now referred to as "quantum groups", in recognition of their applications in physics. Symbolic computation is part of a key technology, namely, scientific and engineering computation, that is becoming increasingly important to science, technology, and society. It is leading to dramatic changes in the theory and practice of mathematics. There are good reasons to expect a synergistic relationship between investigations in Hopf algebras and symbolic computation. Hopf algebra arguments often involve complicated symbolic calculations which are quite similar to ones which (in the commutative case) can now be done very effectively by machine. In the other direction, Hopf algebra ideas help to explain and organize computations. Hopf algebras provide a challenging setting in which to develop computational methods, but the very structure that causes the scarcity of simplifying relations helps to keep track of the ones that exist. It is expected that the insights gained in exploiting this Hopf structure will contribute to the wider goal of advancing symbolic computation.